Connecting to NSFNET

9318799 Boyer This project connects Pierce College to NSFNET through the Communication Technology Center over a 56 kbps line. Faculty and students will benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they will be able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years.